CAREER: Predicting Bridge Life-Cycle Deterioration By Integrating Condition States with System Performance

At a time when our civil infrastructure systems are in dire need of renewal, efforts are being made to improve maintenance procedures and condition assessment practice. This Career development plan addresses current issues related to infrastructure renewal. The research work is integrated into a research and education program which revolves around topics related infrastructure renewal engineering. As part of the research program, performance-based prediction models for bridge deterioration will be developed. The prediction models will track component and system parameters (such as component capacity and system load rating) as a function of time and will be based on the mixed quantitative and qualitative information obtained in the field. By using case histories developed for individual bridges and isolating parameters which relate specific causes to bridge deterioration it will be possible to generalize the models to a set of parameters which consider bridge type, use, and environmental conditions. The prediction model will consider changes in structural performance due to deterioration and damage.